US Egypt Cooperative Research - A Novel Approach for Fabrication Technology of Mullite Nanoparticles from Industrial Wastes for Advanced Applications

1103598

This project supports a cooperative research project by Dr. Kevin Powers, University of Florida, Gainesville and Dr. Mohamed M. Rashad, Central Metallurgical Research and Development Institute (CMRDI), Helwan, Egypt. They plan to study a novel approach for fabrication technology of mullite nanoparticles from industrial wastes for advanced applications. The objective is to develop advanced technologies to recycle and process silica effluents disposed from aluminum manufacturing in Egypt, silica fume from Ferro-silicon Alloys Company, Al dross from Egyptian Aluminum Company and aluminum effluents disposed from Egyptalum Company for the production of mullite nanoparticles 3Al2O3.2SiO2 used in refractory, electronic and optical applications. The technology to be developed is equally applicable to the U.S. industry centered in the Virginia/North Carolina and Georgia mining districts and has implications for the U.S. steelmaking industry. The technology depends on the formation of soluble solutions of sodium aluminate NaAlO2 and sodium silicate Na2SiO3 chemically treated under specified conditions. The effect of synthesis conditions, temperature, time, pH, molar ratio and the crystal modifiers on the crystal structure, size and microstructure will be studied and the optimum conditions determined. Moreover, the changes in the surface area SBET, DC resistivity, optical and mechanical properties will be measured. The research has the potential to transform undesirable by-products generated under current production methods into a high value added product for the mullite manufacturing industry. The educational aspects of the proposed work focus on the training of young Egyptian scientists in advanced characterization techniques and young U.S. scientists in the use of technological advances to improve the efficiency and sustainability of traditional mineral production practices. This project also brings together the international expertise of particles in USA (PERC) with the particle technology experts in Egypt (CMRDI).

Intellectual Merit: The dramatic increase in worldwide demand for steel and other industrial products brings with it a concurrent increased demand for mineral resources such as Kyanite, Andalusite, Sillimanite and Mullite used for refractories, glass, white wares and other ceramic products. The mining, refining and processing of these diminishing resources is intensive in energy and water use. The advanced methods investigated herein will lead to a greater understanding, greater efficiency and potential new uses for recycled industrial wastes and valuable end products.

Broader Impacts: Recycling what once was industrial waste into a marketable product is a natural avenue toward achieving sustainable energy and water use practices in both emerging and advanced industrialized countries. The techniques and processes developed under this proposal can be implemented in emerging economies and used to revitalize U.S. domestic production and practices in an environmentally responsible and economically feasible manner. The project will help educate Egyptian scientists in advanced characterization techniques and re-introduce traditional mineral engineering principles to a new generation of U.S. engineering students.
This proposal is supported under the US-Egypt Joint Fund Program where NSF supports the US side and the Government of Egypt funds the Egyptian side.